Mathematical Sciences: Hamiltonian Dynamical Systems

The principal investigator will analyze the hyperbolic behavior of finite systems of interacting problems. Specifically, he will investigate the ergodic theory or long term behavior of a system of n particles in a line subject to an appropriate external force. The project will also investigate diffusion around a particular stable solution of the dynamical system. The research considers a special case of a problem, the n-body problem, which has resisted complete solution since Newton.